CWRU Support of IEEE EnergyTech2013, May 21-23, 2013. Location: Case Western Reserve University, Cleveland, Ohio.

This proposal is for student travel support to attend the IEEE EnergyTech 2013 conference which surveys promising technologies in Power and Energy to address the growing demand for sustainable energy. This conference will bring together experts in diverse areas from academia, government and industry to review and explore technologies that promise significant contributions towards addressing the global Energy Sustainability challenge. The workshop is chaired by Prof. Wyatt Newman and will be held at Case Western Reserve University on May 21-23, 2013.